Early Equity in Science and Mathematics

Ms. Phyllis Brady is the Director of the Child Development Programs in the Education Office of Santa Barbara County, California. Ms. Brady proposes three years of leadership training in science and math education for 90 elementary and pre-school teachers from Santa Barbara, Ventura, and San Luis Obispo Counties. The teachers would be drawn from schools with large minority enrollments, and the training would focus on modifying existing instructional materials, and developing new materials, that address the multicultural, socioeconomic, physical disability, and gender equity issues. The proposed workshops will provide the participating teachers with an excellent background and experience in science and math content, and the most current teaching methods in early childhood science/math education. This training experience will allow them to develop strategies for improving equity of access to science and mathematics for children of diverse backgrounds. They will then train and work with the other teachers in their respective schools to extend the impact of their training. The cost sharing for this project (not including substitute release days for participating teachers provided by their school districts) represents 17% of the NSF contribution.